FSML- An Arctic Winter Residence Facility for the Toolik Field Station, Alaska

The Toolik Field Station, located on Alaska' s North Slope, provides a nationally and internationally significant research platform for biological, hydrological, geological, and atmospheric investigations on unique arctic terrestrial and freshwater ecosystems. Since 1975 it has served investigators and students from 63 institutions and universities from 39 states and 25 countries. Since 1992 use of the Toolik Field Station CFFS) has increased by 40% to its current occupancy of approximately 3,500 user days in a four month field season; this demand is expected to be sustained or grow further over the next 10 years. This proposal is for building a winter residence facility that, together with the winter laboratory acquired in 1994, will expand access to TFS and its arctic research programs to all of the year. Currently there are no field research stations in the U. S. and few in the circumpolar region at which scientists can work year-round. This new capability is expected to increase the scope and nature of current research programs that have not before been able to investigate and integrate into summer-based models the significant and important winter- season processes that occupy 75% of the arctic year, and new investigators from a variety of disciplines are expected to be attracted to using the facility. A modern residence facility with redundant heating and power sources and a satellite phone is necessary for winter research operations and the safety of investigators and staff. A winter residence facility was a key and highest priority item in the Toolik Field Station: The second twenty years, recommendations on the science mission and the development of Toolik Field Station, the report that resulted from a NSF workshop of U.S. arctic researchers and logistics experts held in 1995. It is also an immediate priority of U.S. Logistics for Arctic Science, a forthcoming publication of the arctic Research Consortium of the United States. Current NSF-sponsor ed studies based at TFS include the arctic Long-Term Ecological Research program, the U. S. International Tundra Experiment program, Components of the Arctic System Science's Land- Atmosphere-Ice-Interactions, The Effects of Climate and Vegetation on Below Ground CO2 Fluxes in Arctic Ecosystems; Hydrologic Linkages with Arctic Freshwater and Terrestrial Systems; Development and Validation of a Biosphere Model for Arctic Tundra with Linkages to Satellite Radiobrighmess; Primary Production in Arctic Ecosystems: Interacting Mechanisms of Adjustment to Climate Change; Effects of Increased Season Length on Plant Phenology; Community Composition, Productivity, and Ecosystem Carbon Fluxes in Alaskan Tundra: Implications for Global Change; and Hormone-behavior Adaptations in Arctic Birds; these are among 22 different projects that are expected to use TFS in 1997.